The Social Implications of Changing Knowledge in the Life Sciences

Current rapid developments in the biological sciences are enlarging and altering our understanding of living systems, from individual cells to global ecosystems. These changes in knowledge carry profound, but insufficiently explored implications for social institutions and policies. Historians, social scientists and biologists in the Program on Science, Technology and Society of Cornell University are addressing these implications in a series of five interrelated research projects: (1) biology and the legal order, (2) environmental change, (3) communication and use of scientific knowledge, (4) historical studies of scientific change, and (5) women and biology. In the first research project, historians, lawyers and ethicians are examining the legal, social and ethical implications of recent developments in genetic screening, gene therapy, and environmental regulations. Family, employment, health, education, and criminal justice are all affected by the advances in biological sciences and issues of privacy, equal protection, due process, free exercise of religion, academic freedom, and separation of powers immediately come to the fore. Environmental scientists, historians and social scientists are joining together in the second project to investigate questions like the socioeconomic implications of global change, the pattern and scale in spatially explicit ecological models, integrated resource management for an ecologically and economically sound agriculture, and social construction of environmental modeling. Research in area 3 focuses on the role and activities of scientists and other social actors in the dissemination of scientific information through varied channels of communication. In area 4, researchers aim to develop an understanding of current developments in the life sciences within the framework of historical and philosophical perspectives on science in general; and to apply ideas about the meaning and nature of scientific change to assessing the significance and direction of contemporary trends in the life sciences. Under "women and biology, investigators are examining the historical phenomenon of why American women scientists have more often gone into biological fields rather than into physical, mathematical or engineering specialties and the implications of this phenomenon for the "style" of work in the life sciences. Over five years, this grant supports postdoctoral fellows, graduate and undergraduate student to participate in research and training in each of these areas of research.